U.S.-China Cooperative Research (Physics): Studies of Nuclear Structure Physics

This is a three.year collaborative project between David Fossan of the State University of New York at Stony Brook and Richard Casten of Brookhaven National Laboratory and Zhang Jingye of the Lanzhou Institute of Modern Physics, Lanzhou, China. This project is sponsored jointly by NSF and the Chinese Academy of Sciences. Professor Zhang is a leading nuclear structure theorist active in worldwide research at the Niels Bohr Institute of the University of Copenhagen and the Joint Institute for Heavy Ion Research at Oak Ridge. His visits with the experimental groups at SUNY Stony Brook and Brookhaven National Laboratory will focus on three research areas that involve theoretical interpretation and guidance of the experimental programs. The three research areas are: (1) nuclear shapes, (2) the source of nuclear collectivity, and (3) dynamic properties. The first area relates to the influence that specific nucleon orbitals have on the shape of the nucleus, the second to the role of the neutron. proton interaction in the onset of collective motion in the nucleus, and the third to transitions from a specific region of stability involving rotational motion to another region. The key to this program is the effective interaction between the experimental and the theoretical approaches to the understanding of these research areas.